Investigation of Aqueous Solutions at High Temperature

Robert Wood from University of Delaware is supported by a grant from the Theoretical and Computational Chemistry Program to continue his experimental thermodynamic research on aqueous solutions at high temperature. Wood will measure electrical conductance of aqueous solutions of a variety of salts at temperatures from 350 to 425 degrees Centigrade and pressures up to 28 MPa in order to determine ionic association constants. In collaboration with scientists at Oak Ridge National Lab Wood plans to construct an instrument capable of extending these measurements to 650 degrees Centigrade and 300 MPa. The ionic association constants thus measured, together with heat capacity and volumes of a variety of salts and nonelectrolytes near the critical point, will be used to construct accurate models for aqueous salt solutions near the critical point for water. Wood will also use this data to develop model classical Hamiltonians for use in performing simulations in extrapolated regions of temperature and pressure. High temperature aqueous solutions play an important role in a wide variety of industrial and natural processes. Examples of these processes are mineral transport, deposition and alteration, hydrocarbon formation, migration and accumulation, electric power boiler corrosion, and hydrothermal reservoir utilization. There is also interest in using supercritical water as a reaction medium for oxidative degradation of hazardous waste, conversion of coal to gasoline, and as a reaction medium for organic synthesis to replace conventional organic solvents. Wood's research will help to provide a basic understanding of ionic solutions at high temperatures and pressures which is fundamentally important to the efficient development of industrial uses of supercritical water